Cooperative Research in Computer Science, Indo-U.S. WorkshopAugust 4-6, 1992, Bangalore, India

Description: This project supports participation of a U.S. team of computer scientists and engineers in a Indo-U.S. workshop on "Cooperative Research in Computer Science" to be held in Bangalore, India, August 4 to 6, 1992. The areas of expertise to be represented include: robotics and computer vision, computer systems and networking, software engineering, and artificial intelligence. The objectives of the workshop are to: present papers by U.S. and Indian participants about the recent advances in the various topical areas, identify research needs in each of these areas, identify suitable areas for Indo-U.S. collaborative research, and establish firm collaborations between U.S. and Indian scientists. Scope: This is the second Indo-U.S. workshop in the area of computer science. The first was held in 1989 in the city of Hyderabad, India with participation from India's main governmental and private research organizations with interest in computer research and applications. Since that time a number of collaborative activities have resulted. The present project is designed to continue and intensify this mutually beneficial interaction and collaboration. The project meets the objectives of the U.S.-India Cooperative Science Program.